From Solution to Surface: Immobilizing Molecular Electrocatalysts on Conductive Supports

In this project, Professor Ksenia Glusac of the Department of Chemistry at the University of Illinois Chicago (UIC) is developing molecule–electrode hybrid catalysts that combine the precise chemical tunability of molecular catalysts with the electrical conductivity and stability of carbon-based electrodes. The goal of the research is to understand how attaching catalysts to electrode surfaces changes their ability to use electricity to drive hydrogenation and oxygenation reactions. These reactions are essential for producing industrially important chemicals, including alcohols and epoxides used in pharmaceuticals, polymers, coatings, adhesives, and other materials. By establishing principles for controlling chemical reactivity at electrified interfaces, the project will contribute to the development of more selective and energy-efficient chemical processes. The project will also provide interdisciplinary training in molecular synthesis, nanomaterials, electrochemistry, spectroscopy, and computational chemistry. Broader-impact activities include interdisciplinary seminars, research collaborations, and career-oriented training for students. In partnership with the Chicago-based technology incubator mHUB, graduate students will participate in workshops, mentoring, and internship opportunities designed to prepare them for careers in industry, national laboratories, entrepreneurship, and academia.

The research will determine how metal coordination, surface immobilization, and electric fields within the electrochemical double layer control ligand-centered hydride transfer. In the first research thrust, bipyrimidine-based molecular complexes will be synthesized to establish how coordination to Lewis-acidic metal ions tunes ligand hydricity and hydride-transfer kinetics. Thermodynamic hydricities and reaction barriers will be quantified using potentiometry, electrochemistry, spectroscopy, kinetic measurements, and density functional theory calculations. In the second thrust, related catalytic sites will be incorporated into monolayer graphene nanoribbon nanosheets and immobilized on conductive electrodes. Proton-coupled electron-transfer measurements and vibrational Stark spectroscopy will be used to determine how much of the applied electrode potential is experienced by the surface-bound catalytic groups. In the third thrust, these molecule–electrode hybrids will be evaluated in increasingly complex electrocatalytic transformations, including hydride transfer to iminium ions, hydrogenation of carbonyl compounds through coupled hydride- and proton-transfer pathways, and tandem alkene epoxidation in which electrochemical oxygen reduction produces hydrogen peroxide for a subsequent chemical oxygen-transfer reaction. Collectively, these studies will provide design rules connecting molecular structure, metal coordination, interfacial electric fields, and surface immobilization to the performance of hybrid electrocatalysts.